Midwest Comprehensive Regional Center for Minorities (MCRCM)

The proposed Center is a partnership of five universities, two prominent community organizations, a national laboratory, a statewide business, education, and government alliance, and the Chicago Public Schools. The universities are Loyola (the lead institution), Chicago State, Illinois Institute of Technology, Southwestern University, and University of Illinois/Chicago. Fifteen programs will be conducted, under subcontracts, by the partner-institutions. One of the programs to improve undergraduate retention, Teaching Integrated Mathematics and Science (TIMS), will receive a substantial grant from the Division of Teacher Preparation and Enhancement (DTPE) and the Division of Mathematics (DMS), which will jointly support the Center with the Career Access Program. Program Components, in addition to TIMS, will address their target-areas: Teachers, Undergraduates, and Pre-College - elementary, middle, and high school program activities will include institutes, academics, tutorials, apprenticeships, and workshops for parents and students.